TC:Large:Collaborative Research:Anonymizing Textual Data and its Impact on Utility

Data Protection laws that exempt data that is not individually
identifiable have led to an explosion in anonymization research.
Unfortunately, how well current de-identification and anonymization
techniques control risks to privacy and confidentiality is not well
understood. Neither is the usefulness of anonymized data for real-world
applications. The project addresses anonymization on three fronts:

1) Textual data, even when explicit identifiers are removed (names,
dates, locations), can contain highly identifiable information. For
example, a sample of chief complaint fields from the Indiana Network
for Patient Care (INPC) found several instances of "phantom limb
pain". Amputees can be visually identifiable, but the HIPAA Safe
Harbor rules do not list this as "identifying information". Any
policy explicitly listing all types of identifying data is likely to
fail. Through a joint effort with computer science and linguistics,
the project is developing new methods to remove specific details from
text while preserving meaning, eliminating such highly identifiable
information without a priori knowledge of what would be identifying.

2) Current anonymization research is based on unproven measures of
identifiability. Through a re-identification challenge on synthetic
data (but based on real healthcare data), the project is evaluating
the efficacy of these measures. Interdisciplinary teams of students
are given challenge problems - anonymized data with hypothetical
healthcare data - and asked to make (hypothetical) inferences about
health information of individuals. The results can be used to
calibrate the effectiveness of different anonymization measures.

3) The utility of anonymized data has been a concern among research:
Does anonymized data provide credible research results? By partnering
with healthcare studies at the Kinsey Institute and Purdue University
School of Nursing, the project is comparing analyses on original data
with analyses on anonymized data, and evaluating the impact of types
of anonymization on research results. A related issue is determining
the impact on data collection: Are individuals more candid in their
responses if they know data will be anonymized? Outcomes are broadening
the scope of research that can be performed on anonymized data, while
ensuring that researchers know when access to individually identifiable
data (with attendant restrictions and safeguards) is needed.

Through these tasks, the project is advancing our ability to utilize
the wealth of data we now collect for the benefit of society, while
ensuring individual privacy is protected.

For further information see the project web site at the URL:
http://projects.cerias.purdue.edu/TextAnon